Studies of the Development of Ice and Precipitation in Cumulus Clouds

The objective of this research is twofold: (1) the initiation and evolution of ice in convective clouds, and (2) the growth of cloud drops owing to mixing. These topics will be pursued using aircraft measurements taken during two field experiments in Hawaii and New Mexico.